Probability Models on (Exotic) Graphs

9813719
Schinazi
This award provides funds to partially support a research conference on probability models to be held at the University of Colorado at Colorado Springs, May 28-30, 1999. The purpose of the conference is to bring together probabilists, physicists, and biologists with interests in this area of research. This is currently an active area of research in probability, and these models have applications to problems in physics and biology.